PYI: Computer Vision

This Presidential Young Investigator award is for the support of Dr. Malik's outstanding work in computer vision. He has already brought deep mathematical insight to innovative problems in shape from shading, curved-object recognition using aspect graphs, and scale-space approaches to edge detection and early vision. He plans to continue work in image segmentation, shape recovery, and object recognition. Dr. Malik is also an excellent speaker and a promising teacher, having graduated one outstanding Ph.D. student and co-authored papers with several others.